STTR Phase I: Actively Seeded Microwave Processing of Multifunctional Silicon Carbide

This Small Business Technology Transfer (STTR) Phase I project will have a novel approach for the rapid fabrication of low-cost and net-shape, silicon carbide components with specifically tailored multifunctional properties. These materials will be produced by microwave-induced pyrolysis of an actively seeded, high-purity preceramic polymer. The control of processing parameters will allow for direct control over material micro/nano-structure, mechanical, electrical and/or thermal characteristics, and physical properties including porosity and gas permeability.

A variety of polymeric precursors to silicon carbide have been formulated that contain silicon and undergo a polymer-to-ceramic conversion when heated at temperatures above 800C, which allows the production of highly three-dimensionally covalent refractory components that are difficult to fabricate via the traditional powder processing. In order to reduce processing time and provide a larger throughput rate, nonconventional heating systems, such as microwave heating, are being investigated.